RUI: On-line Measurement of Charge Moments of Unstable Nuclei by Methods of Laser Spectroscopy

This grant will support the work of Colgate University Professor Charles Holbrow, who will investigate the nuclear moments of radioactive nuclei. Using the Stony Brook linear accelerator, radioactive recoil nuclei from heavy ion nuclear reactions will be stopped and neutralized in a gas cell. Laser light-induced resonance fluorescence will be used to examine the hyperfine spectra of atoms formed with the radioactive nuclei. Undergraduate students from Colgate University are participating in this research.